Rhythm ( A Series of Interactive Exhibits Exploring the Subject of Rhythm)

Children's Discovery Museum of San Jose seeks National Science Foundation grant support in the amount of $381,000 (55% of a total project cost of $693,188) to develop over a 24-month period a series of interactive exhibits exploring the subject of rhythm, including both obvious and lesser known manifestations within the natural and physical worlds. Drawing upon the scientific disciplines of mathematics, biology, physics and psychology, RHYTHM takes as its construct the idea of time, the articulation of which means for apprehending and understanding rhythm. Working with outside advisors in science education and specific content areas, Co-PI Michael Oppenheimer will develop and build 20 exhibits, which will be semi- permanently installed at Children's Discovery Museum and accessible to our annual visitor population of 350,000; exhibits will also be profiled on "Kids" Clubhouse," a television program developed jointly by the Museum and our local PBS affiliate, KTEH/54, viewed by 55,000 weekly. Matching funds are also being requested to support curricular materials and a traveling version of RHYTHM. Over a 2-year, 8-site tour the Association of Science and Technology Centers projects that the series will reach a national audience of more than 1,000,000 children and adults. As a comprehensive project, RHYTHM provides a compelling model for addressing imperatives articulated in Science for All Americans, the landmark report issued by Project 2061 of the American Association for the Advancement of Science. Located in San Jose, California, the Museum serves an expanding urban area characterized by extraordinary ethnic diversity: Santa Clara County's 1.5 million residents are 42% non-Anglo, while San Jose is 50.8% Hispanic, Asian and Black.